Collaborative Research on The Molecular Identification and Cellular Location of Bursicon, The Insect Cuticle Sclerotizing Hormone

The insect neurohormone bursicon is essential for formation of the insect
hard outer cuticle. Although discovered in 1935, bursicon and its action
have remained poorly understood. The primary aim of this collaborative project is the
characterization of the gene sequence coding for this ubiquitous insect
neurohormone. Degenerate primers derived from several partial amino acid
sequences of cockroach bursicon will be used to amplify bursicon cDNA from
messenger RNA by reverse transcription and PCR. In addition, existing cDNA
libraries from other insects will be used for screening with probes derived
from PCR. Knowledge of the full sequence of bursicon will facilitate
identification of the bursicon active site and its receptor.
Because insects 'wear' their skeletons on the outside, they must
periodically shed them as they grow or metamorphose. During each molt
cycle, new cuticle must be synthesized. The hormone bursicon, triggers the
hardening of the new cuticle once the old cuticle has been shed. Cuticular
hardening provides not only protection, but also a framework for muscle
attachment enabling locomotion. Clearly, interference with bursicon
release or its actions will result in the death of the animal. This
investigation will provide a basis for new methods of biological pest
management by disrupting the function of bursicon.